Vibrations in Piping Systems Caused by Fluid Transients and Seismic Excitations

Consideration of the dynamic interaction between pipes and the fluids they transport is crucial in the design of piping systems. This project comprises two components. The first addresses the development and validation of new theory and analysis techniques for accurately representing the liquid/structure interaction in piping. The theory is applicable to a wide class of piping applications subject to general dynamic loading. The second phase of this project applies the theory to the seismic loading case; the goal is new design guidelines for pipe design in earthquake prone regions.